Women in Science Project

Freshman women are the target population for this project at Dartmouth College, since decisions made during the freshman year are considered to be crucial in determining whether or not a student will major in science. The project offers: (1) an opportunity, generally not available during the freshman year, to work in research; (2) one-on-one work with a science faculty member who can serve as a present and future role model; (3) "hands-on" laboratory work and firsthand experience with scientific inquiry; (4) two special Science Seminars, one each term; (5) an "Older and Wiser" program to pair participants with senior women majoring in science; (6) field trips to local and regional science and engineering firms and laboratories; and (7) workshops and panel discussions featuring science majors, graduate students, faculty and non-academic scientists. Vigorous campus support provides a strong foundation for this work.